Fluid Dynamical Models for Determining Wind Characteristics and Their Application in Pakistan

This project provides support for research, by Drs. Mariano A. Estoque and T. Nejat Veziroglu of the University of Miami, and by Dr. A. A. Junejo of Pakistan's Appropriate Technology Development Organization, and Dr. M.Y. Akhtar of the National Institute of Power, to develop models for determining detailed wind distribution over complex terrain, and to apply the models to selected regions of Pakistan. Input for these models are the prevailing flow field and geographical distribution of the terrain elevation. The modeling results are expected to provide data for preparing detailed wind atlases for selected regions of Pakistan. These will provide important information for the development of wind energy in that country, both for agriculture and industrial use. The U.S.-Pakistan Program supports joint research where the technical capabilities of scientists and the facilities complement each other, and where the research is likely to benefit both countries. These conditions are met in this project. The U.S. researchers have worked on energy research for many years with considerable results and publications. Dr. Estoque has extensive research experience in meteorology and boundary layer studies. The Pakistani collaborators are well-qualified scientists with long research experience in their fields. The research is of particular importance to Pakistan because of its interest in developing renewable energy sources. It is also important to the U.S. since modeling weather conditions in various regions of the world could lead to better understanding of the weather in the U.S. The project has the support of the Government of Pakistan which is providing the costs of the activities to be carried by that country's scientists. The project is to be funded over three years as follows: 1. University of Miami, INT-8709973 FY87: U.S.$11,000 (INT) + U.S.$10,000 (ECES) + SFC$14,000 (Pakistani currency) FY88: U.S.$11,000 (INT) + U.S.$10,000 (ECES) 89: U.S.$11,000 (INT) + U.S.$10,000 (ECES) 2. Pakistan's Appropriate Technology Development Organization To be funded by Pakistan's Ministry of Science and Technology